Edge-Driven Kinematics of the Juan Fernandez Microplate

9314169 Schouten Recent GLORIA sidescan, multibeam bathymetry, magnetic and gravity surveys would be used to derive a kinematic solution for the evolution of the Juan Fernandez microplate located at the triple junction between the Pacific, Nazca, and Antarctic plates. The solution will be compared with the kinematic solution for the evolution of the nearby Easter microplate. The hypothesis that the motion of oceanic microplates may be caused by forces applied to them on their boundaries by the movement of the surrounding larger plates will be tested. This will provide the formulation of a general model for oceanic microplate tectonics. ***